Connection to Southeastern Universities Research AssociationNetwork

Hood College is establishing a connection to NSFNET via a 56,000 bits per second line through the SURANET mid-level network. The connection enhances collaborations of campus scientists with colleagues in fields including biology, chemistry, physics and astronomy. This award funds part of the costs for two years.